Gene Regulation During Cyanobacterial Development

Anabaena PCC7120 is a filamentous cyanobacterium that enters a developmental pathway in response to nitrogen starvation. The culmination of this pathway is the differentiation of heterocysts, cells specialized for nitrogen fixation. The development of heterocysts includes the appearance of gene products involved in nitrogen fixation, the disappearance of certain gene products involved in photosynthesis and the constitutive expression other gene products such as those involved in energy metabolism. We have isolated expression other gene products such as those involved in energy metabolism. We have isolated and determined the sequence of sixteen photosynthesis genes that comprise eight transcription units within the Anabaena genome, and one gene involved in carbon metabolism. These genes fall into two classes: 1) those that are constituitively expressed and 2) those that are expressed only in vegetative cells. Based on comparative sequence analysis around the transcription initiation sites utilized during vegetative growth, we predict that one transcription signal lies at -10 nucleotides from the transcription initiation site. We have developed a system for the functional analysis of Anabaena promoters in vivo. We will use this system and the characterized genes to define the promoters utilized for transcription in undifferentiated vegetative cells and to examine whether promoter utilization plays a role in differential gene expression during heterocyst development.